Impacts of coastal corners on river plume behavior and wind-driven freshwater transports

Capes, peninsulas, and many other prominent coastal features create abrupt coastal orientation changes. These features impact river plume behavior and wind-driven currents. The goal of this project is to advance the understanding of how large-scale river plumes, winds, and the shape of the coast interact and affect land-ocean exchange. For this purpose, model simulations of river outflow in settings with different coastal features, including headland corners, will be compared to theoretical calculations and satellite imagery of river plumes world-wide. The research has broad implications for marine ecosystems and fisheries since river plumes are important for coastal productivity and fisheries. Furthermore, students will be trained and public outreach will be conducted to enhance knowledge in the marine sciences with focus on river outflow behavior.

This project will examine how convex and concave curving coasts, large-scale river plumes, and winds interact. The research is rooted in existing theory on coastal separation, bulge formation by coastal impingement, and wind-driven flows. Key parameters are the coastal radius of curvature (rc), plume inertial radius (ri), internal Rossby radius (R), and Coriolis parameter (f). Hypotheses are: 1) Tightly-turning (rc<2ri) convex coastal corners are hotspots for offshore freshwater transport driven by plume separation and enhanced by winds blowing obliquely offshore, 2) tightly-turning (rc<R) concave coastal corners drive plume widening and accumulate freshwaters that can be subsequently transported offshore by upwelling-favorable winds, and 3) decreasing latitude (and f) or shelf slope increases plume separation at convex corners, bulge widths at concave corners, and plume sensitivity to winds in all situations. Modeling with the Regional Ocean Modeling System and analysis of satellite imagery of river plumes and wind data will be used to address these hypotheses and to advance the state-of-the-art knowledge for river plume behavior and wind-driven currents in complex coastal settings.